Microbiology/Immunology Curriculum Upgrade at Doane College

A new course, Advanced Microbiology, will be added to the curriculum. Each year it will provide a detailed study of one topic (e.g., Pathogenic Microbiology, Applied and Environmental Microbiology, Virology, Microbial Physiology, Microbial Genetics) in a strong laboratory format. Problem-oriented laboratories will be developed in all other microbiology/immunology courses. For example, the study of lymphocyte division will be developed into an integrated problem involving extraction of mitogenic substances, dose-response determination of the effectiveness to stimulate lymphocytes, measurement of lymphocyte replication, and quantitative comparison of mitogenic factors isolated from different plants. Selected students will also undertake independent research projects using the new equipment, which includes a centrifuge, liquid scintillation counter, ultra low freezer, and freeze dryer. The college will provide 50% matching funds.